Instrumentation for Molecular Evolutionary Studies

The present proposal is a request to the NSF to assist in equipping research facilities for the evolutionary biology program at Yale University. The six principal investigators on this proposal represent a diversity of research programs yet with common research strategies that make it very effective to share common facilities. The overall theme of the research is to understand evolutionary mechanisms as they apply to molecular cellular, and developmental system. The major pieces of equipment to be purchased are an oligonucleotide synthesizer for synthesis of primers for DNA sequencing, an automated DNA sequencer, a computerized analytic system for acquisition and analysis of molecular data, especially DNA sequence data, a microscopic video computer system to allow analysis of still and motion images, and centrifuges and a scintillation counter. In addition to solely research purposes, the new facilities will serve as training for graduate students and postdoctoral fellows, as well as visiting scientists, in the most modern approaches to evolutionary questions.